Stochastic Theory and Control Workshop at the University of Kansas, October 18-20, 2001

Enormous demand to analyze and construct stochastic models describing various
situations in the modern world has created new fast growing research fields that include
financial mathematics, telecommunications, transportation, manufacturing, energy and
biomedicine.

Powerful techniques from stochastic theory and stochastic control have allowed to
formulate and to solve a number of problems arising in these cutting-edge disciplines.

The workshop will focus on building closer collaborations among stochastic
control researchers .It will focus on promoting collaborative initiatives in stochastic
theory and control as well as in stochastic theory and control education.